Designing Microworlds: A Perspectival Approach to Product and Process Development

Abstract

Proposal Number: SES 00-85189

Principal Investigator: Farrokh Mistree

This Small Grant for Exploratory Research project proposes a study of design microworlds and their integration in the process of collaborative design efforts. Identifying reusable assets for design; exploring design perspectives as if on a voyage of discovery; designing products and processes concurrently within an enterprise; effectively managing design knowledge, abstractions and freedom within the collaborative design process; creating a framework for automated, distributed design; and establishing a new approach to engineering design pedagogy are the principle issues to be explored. Theoretically, the effort proposes to integrate living systems theory, working principles and working. The intended deliverable is a full formal proposal to develop the foundational principles for designing microworlds that support human reasoning and judgment in an information-driven, distributed, engineering-related enterprise.